Ion Atom Collisions: Correlated Systems

This project concentrates on the development of theoretical approaches and calculational tools to study ion atom excitation, ionization and charge transfer when electron-electron correlation effects are present.